EPSCoR Research Fellows NSF: Developing Next-Generation Electromagnetic Models of Explosive Transient Observations

This Research Infrastructure Improvement (RII) EPSCoR Research Fellows project provides a fellowship to an Assistant professor and training for a graduate student at the University of Idaho. This work is conducted in collaboration with Professor Daniel Kasen at UC Berkeley. Through the fellowship, the PI will developed state-of-the-art computational models that resolve the explosive deaths of massive stars as supernovae. These models will provide predictive templates of the light produced by these vigorous explosions in direct anticipation of the exponentially growing catalog of supernova observations with space and ground-based instruments like NSF/DOE Rubin Obseravatory and NASA’s Roman Space Telescope. This project combines machine learning, detailed astrophysics simulations, and big data to explain and optimize the data gleaned from next-generation observational surveys, trains a student in computational astrophysics, and enables a community citizen-science platform for astronomy survey data modeling.

The project will bridge core-collapse supernova modeling with survey observations to advance multi-messenger transient modeling in the 3D era. The PI will develop end-to-end 3D radiation-hydrodynamic templates of core-collapse supernova light curves and spectra from first-principles simulations to improve parameter estimation of stellar explosions and their environments across observational mission scales. The project will advance 3D modeling of non-local thermodynamic signatures of supernova to break degeneracies in parameter inference. The project will train a student in data-intensive modeling, develop and sustain collaborations with UC Berkeley, national laboratories, and observing missions, enrich the computational astrophysics program at the University of Idaho and position it as a contributor to predictive transient astrophysics.